Studies in Common Envelope Evolution

One of the outstanding frontiers of contemporary stellar evolution theory is that brief period of binary star evolution known as the "common envelope phase." Prior to this phase, orbiting stars are attracted closer and closer to one another by the exchange of mass between them as one of them, then a "red giant" expands until the two stars coalesce, becoming a common "star" within which two nuclei orbit. It is thought that the common envelope is eventually ejected, leaving behind two distinct stars once again. The Principal Investigator (PI) intends to build on previous NSF- supported work on the origins of common envelope systems and now plans to study the mechanism(s) by which the envelope can be expelled. His models will include effects of circulation and cooling (recombination of H, He atoms) of an envelope matter through extensive two-dimensional hydrodynamic simulations. This project is expected to give additional understanding to the formation of low mass x-ray binaries and closely orbiting neutron stars and pulsars, and is thus of interest to a potentially wide segment of the astronomical community.